Cross-Cutting Improvements: Building Capacity for Software Development to Support Research Data and Publication Repositories

Providing effective public access to research data requires intuitive and efficient open repositories that can capture and store appropriate metadata and files from researchers and research workflows. Repository infrastructure and workflows are used to make research outputs available as Findable, Accessible, Interoperable, and Reusable (FAIR) data and ensure future availability and access. Advancing cyberinfrastructure for repositories requires continual software development by skilled practitioners who can be difficult to train and hire. This project pilots a post-graduate fellowship experience, where recent graduates gain skills working on open source repository software while making tangible improvements to research data and publication workflows.

This project has two complementary goals of piloting a model for open source software development training and making improvements to the repository workflows commonly used by researchers. Caltech Library is uniquely positioned to host this pilot, as developer of successful institutional repositories CaltechDATA and CaltechAUTHORS which run on the InvenioRDM platform, an open-source application that grew out of the Zenodo generalist repository. The team partners with New York University Libraries to develop and test a curriculum designed to get recent computer science graduates up to speed in contributing to an open source project. The program will be based on The Carpentries approach to teaching foundational coding, and data science skills to researchers. Both Caltech Library and NYU Libraries are active members of the InvenioRDM community and are partners in the development of the platform. Improvements to InvenioRDM achieved through the proposed project work will be added to the core software and can be made available on more than a dozen partner repositories. Focus areas for development include:
- Building out domain-specific metadata fields and file integrations, such as FAIR-bioHeaders
- Adding discipline-specific vocabularies, such as the NCBI taxonomy
- Automating publication and data crosslinking
- Automating author lists for groups and enhancing author metadata management
- Providing feedback to researchers about metadata and file quality during the deposit.